Sampling on the Fly From Massive Data

The sizes of problems that need to be solved in modern applications
have grown enormously. Sampling to draw a (small) subset of the data
to store in main memory and process in detail is thus a natural
alternative to computing on the entire data.
The project addresses the questions of how well the answers from a
sample approximates answers to the full problem for many optimization
problems that go under the name of Constraint Satisfaction Problems.
The project also considers problems where the input data consists of
matrices or higher dimensional arrays. Here adaptive sampling (where
the probability of sampling a piece of the data depends on its
relative importance) has been successfully used by the PI and others
recently. The existing results are to be improved. Adaptive sampling
calls for making more than one pass through the data. The project will
study models of computation, where the number of passes is measured as
an important resource. This is expected to contribute to the
discussion of models to handle large data.

A third part of the proposal is to continue the
PI's study of rapidly mixing Markov Chains, both
by developing new general techniques and applying to
specific problems like the computation of volumes of
convex sets.

Broader Impact: The research is expected to have broad
impact since the processing of massive data via sampling is of
enormous importance in modern computing. The
PI teaches specialized courses at Yale and
hopes to disseminate the results of
the research to students through the courses.